Rapid Prototyping

This project provides funding to equip the School of Engineering and Technology Manufacturing Laboratory with a versatile rapid prototyping facility to allow undergraduate students from the departments of electrical engineering, mechanical engineering, and technology to gain hands-on experience with modern Computer Integrated Manufacturing processes, including Simulation based Design, Design for Manufacture and Assembly, and Agile and Concurrent engineering strategies. By using the rapid prototyping equipment, our engineering and technology graduates can be better prepared for the rapidly changing manufacturing job market. Faculty teaching design, systems engineering, and manufacturing courses will be able to demonstrate in real-time concepts crucial to improving product designs. Therefore, the new equipment significantly enhances the manufacturing education at the university and further improves its excellent record of educating and training students.